REU Site: Research Experience for Undergraduate Site in Physics for the State of North Dakota

9732661 Wagner The University of North Dakota will establish a Research Experience for Undergraduates (REU) site in its Physics department. Undergraduate students will be recruited from the northwestern-plain states, with a recruitment focus on tribal colleges and Native American students. The students will be involved in physics research with emphasis in materials physics and condensed matter physics. %%% The REU site, with a regional focus whereby high quality undergraduates will be recruited from the northwestern-plain states, and with an emphasis on Native American students, has potential impact on underrepresented sectors of the undergraduate student population in physics. ***